Internantional Conference on Inorganic Membranes; June 23-26, 2002, Dalian, China

This award supports partially the participation by 15 American researchers in the 7th International Conference on Inorganic Membranes to be held in Dalien, China, 23-26 June, 2002. This conference provides a unique forum for dialog among international researchers in the field. It will bring together about 300 researchers from 35 countries. Both academic and industrial researchers will participate in sessions on synthesis and characterization of membranes and applications relating to separation processes, membrane reactors, and environmental protection.

Inorganic membranes offer unique advantages in separation processes and reactors because of their stability and durability, and the current research activity is dynamic, stimulated by new developments in materials synthesis, molecular modeling, and specific applications. Much of the important new work is being done abroad, so it is vital that U.S. researchers maintain contact and collaboration with their foreign counterparts. This conference provides an opportunity to promote such contact.